DLI-2: A National Gallery of the Spoken Word

Abstract

IIS-9817485
Kornbluh, Mark
Michigan State University
$936,988 - 12 mos.

A National Gallery of the Spoken Word

This the first year funding of a five year Cooperative Agreement award. The National Gallery of the Spoken Word (NGSW) will preserve and, within the limits of copyright law, make historically significant voice recordings freely available and easily accessible via the Internet. The NGSW will create a significant, fully searchable, online database of spoken word collections that span the 20th century. A collaborative project among the humanities, engineering, education and library science, this gallery will provide the first large-scale repository of its kind. . Participants in this project include researchers who are recognized leaders in the development of aural search capabilities. The NGSW will also create a repository of high quality digital versions of key spoken material with standard bibliographic and metadata access while developing a set of best practices for future development of sound on the web, including methods for conversion, preservation, access, and copyright compliance.